Study of the Structural Damage Caused by Hurricane Hugo in Puerto Rico

Studies on the losses suffered by the Northeastern part of the island of Puerto Rico under the forces of hurricane Hugo will be conducted by: selecting representative structures (e.g., single- and multi-story, wood, steel, cement, private and public buildings) for evaluation of damage sustained; carrying out structural analysis and determining the behavior of structural elements; disseminating the results of this study to architects, engineers, contractors, government officials and the general public by organizing and conducting a national conference in 1990.